Library and Information Applications for the NSFNet Community

NYSERNET, Inc., proposes to develop software which will provide Internet access to bibliographic database materials which are available to scholars today only indirectly or via low-speed low- function terminal networks. They propose to undertake this work in close cooperation with OCLC and other information suppliers. The key element of the project is a bridge from the suppliers' OSI protocols to the Internet TCP/IP protocols, forming a useful step in the NSFNET transition to OSI protocols. This work when completed will advance that transition by allowing information suppliers to develop products now for the coming OSI environment while serving the large academic TCP/IP marketplace in the short term.***